REU: Undergraduate Summer Program in Social Research

This is a Research Experiences for Undergraduates project. It provides research experiences for eight students at Mississippi State University. Students will participate in projects involving social science research.